Identification and Control of Civil Engineering Structures

9410390 Hasslotis In this research planning grant a complete literature review will be taken into the state-of-the-art to identify the needs of the research community. In addition, preliminary computational work will be conducted to asses the feasibility of several proposed projects. These projects include a search for the best modes and degrees of freedom to measure for accurate structural identification, the determination of the optimal placement of actuators and sensors in active control, and the improvement of algorithms used in the identification of damage. Such research will be helpful in the development of non-destructive methods for evaluation the condition and remaining life of civil engineering structures, as well as in the design of more reliable and safer structures.